Presidential Faculty Fellow

9350273 Burke He plans to address interactions of land use and climate change as they influence grassland soil organic matter, carbon storage, and nutrient availability at 3 levels: process studies, simulation analysis, and regional extrapolation. %%% Teaching: He plans to develop an honors course for undergraduates in environmental literacy and an undergraduate/ graduate course in ecosystem ecology. ***